High-Level Optimization for DSP Architectures

Embedded systems require maximum performance from a processor within
significant constraints in power consumption and chip cost. Using
software pipelining, high-performance digital signal processors can
often exploit considerable instruction-level parallelism (ILP), and
thus significantly improve performance. However, software pipelining
sometimes fails to utilize the processor efficiently and may hinder
the goals of low power consumption and chip cost.

The problems with software pipelining can be ameliorated by using
advanced compiler loop transformation techniques. However, current
methods for applying loop transformations are lacking. Metrics for
applying loop transformations do not model high-performance digital
signal processing (DSP) architectures and the effects of software
pipelining effectively.

This research will address the above problems by developing
and experimentally validating the following:

1) A performance metric that accurately models software-pipelined
loop performance on high-performance DSP architectures.

2) A prediction of the register pressure of a software-pipelined
loop before high-level loop transformations are applied.

As a result of this research, more ILP will be exploited in DSP
applications, resulting in an increase in performance and a savings in
the overall energy required to execute an application. Improvements in
performance and energy usage will allow better and more
computationally expensive algorithms to be used in embedded systems.